Great Plains Operator Theory Symposium 2015

This award provides funding to help defray the expenses of participants in the "Great Plains Operator Theory Symposium 2015" that will be held from May 26-30, 2015, on the campus of Purdue University.

This conference is the thirty-fifth installment of the Great Plains Operator Theory Symposium (GPOTS), a series that annually brings together a diverse group of mathematicians whose primary research interests are in operator theory or operator algebras. The main foci of the 2015 event are the following: classification of C*-algebras; von Neumann algebras; recent advances in operator theory; noncommutative geometry; C*-algebras and dynamical systems. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.

Conference web page: www.math.purdue.edu/~mdd/GPOTS2015/index.html